Summer Coursework

This special minority award will give Ph.D. student Christopher J. Davis additional flexibility in pursuing his graduate studies and research in economics. This award will strengthen minority research participation in economics. More specifically, the grant will permit Davis to strengthen his understanding of economic theory by studying the mathematics on which modern economics depends.